Properties of Lanthanide and Actinide Atoms and Negative Ions

Accurate calculations on the electron affinities of a variety of atomic negative ions are carried out using relativistic configuration interaction and relativistic many- body perturbation methods. The results are useful in the interpretation of the spectra and electrons emission of these ions.